Mathematical Sciences: Optimal Design of Sensors and Actuators for Robust Control of Partial Differential Equation Systems

9409506 King The goal of the projected research is to develop rigorous theoretical and computational methods for optimal sensor and actuator design. The investigation will concentrate on systems governed by partial differential equations (PDEs). Many feedback control design methods yield a solution (i.e., an optimal control) which is written in terms of a feedback operator and the optimal state. For finite dimensional systems, this control can also be written as a product of gains and states and decisions regarding sensor design can be made using the form of the gains. In many PDE control problems, the gain operator is a bounded linear transformation between Hilbert spaces. Representation theorems often can be applied to obtain an Rintegral representationS of the gain operator that provides the basis for numerical approximations and analysis. Initially, the investigator will consider the problem of finding the optimal gain operator without prior assumptions regarding actuator type. Robust control designs will be used to formulate the corresponding sensor design problem. The optimal sensors/actuators for the PDE systems may be spatially distributed, though one may wish to approximate the optimal designs and implement a finite number of sensors and actuators. This requires approximation theorems for the various types of control operators. ***